Fundamental Studies in Nuclear Physics

0071856
McKeown
This program includes experimental and theoretical
research in a variety of areas in nuclear physics. The projects are
focussed on fundamental understanding of the structure and
interactions of nucleons and the use of nuclear physics to
perform precision tests the standard electroweak theory.
A substantial part of the experimental program involves
studies of parity violation in electron scattering from
nucleons, nuclei, and electrons. A program to exploit
a new intense source of ultra-cold neutrons in Los Alamos
will study the beta asymmetry in neutron decay with
unprecedented precision as well as other fundamental properties
of neutrons. The education and training of students
and postdoctoral scholars is a key aspect of this research program.